CAREER: Incipient Failure Detection and Predictive Maintenance for Power Distribution Systems

9624245 Butler A balanced career development program is proposed which integrates a research plan focusing on the design and development of an incipient failure detection and predictive maintenance system and an education plan which utilizes that research in enhancing undergraduate and graduate courses. This research proposes the design and development of analytical signal processing techniques, new heuristic and probabilistic techniques, and an expert system method which will perform incipient fault detection and predictive maintenance for distribution systems. This system will reduce unscheduled down- time, increase quality up-time, and decrease overall maintenance cots. The proposed education plan includes the enhancement of the undergraduate power systems courses to expose and train students to use new power system technologies. These revitalized courses will be made available to universities with small power programs through distance learning technology. ***